Biochemistry and Environmental Science/Ecology as Areas of Concentration for Biology and Chemistry Majors

Biochemistry and environmental science/ecology are being established as areas of concentration for biology and chemistry majors at Curry College. This is made possible by the recent acquisition of major equipment including a high performance liquid chromatograph, a refrigerated centrifuge, a UV-visible recording spectrophotometer, a fraction collector and gel electrophoresis apparatus. With this equipment, improved laboratory courses and opportunities to engage in significant research projects are now available to undergraduates in biology and chemistry, thus providing them with more relevant training and better opportunities for professional preparation in biochemistry and environmental science/ecology.